Collaborative Research: An Exhumed Field Example of Heterogeneous Lower Crustal Flow, Athabasca Granulite terrane, Canada

The role played by Earths lower crust (>25-30 km depth) in the dynamic evolution of continents is a fundamental target in Earth sciences. In particular, pervasive ductile flow of the lower crust has been proposed in many tectonically active regions around the world in order to reconcile topography and other surface geologic and climatic processes with lithospheric-scale geodynamic and geophysical data sets. Although commonly modeled homogeneously in two-dimensions, natural observations suggest that this process is fundamentally heterogeneous (e.g., with lateral boundaries and internal gradients in the flow field). In this project, we seek to document the spatial variation and physical characteristics of this heterogeneity in an exposed example of lower crustal flow so that this process may be more easily recognized remotely (i.e., seismically) in the deep crust of active tectonic regions. Two graduate students will base their dissertations on this work, and undergraduate students will participate as field assistants and as researchers in sample analysis and modeling.

The Athabasca Granulite Terrane in the western Canadian Shield is arguably the largest exposure of lower continental crust in North America. Within this terrane, a gently dipping and locally pervasive granulite-facies deformation fabric records sub-horizontal ductile flow at 30-40 km paleodepth. The Cora Lake shear zone is a distinct kilometer-scale sub-vertical zone of high-grade strike-slip deformation that is thought to be kinematically compatible and co-eval with the adjacent sub-horizontal flow fabrics. We hypothesize that 1) the early history of the Cora Lake shear zone is an analog for heterogeneity and strain partitioning in some modern lower crustal flow regimes and 2) that the fabric intensity and scale of the shallow and steep fabric domains are sufficient for seismic observation. We will test these hypotheses with three objectives: 1) detailed field mapping with the goal of constructing a map of lower crustal flow and especially flow heterogeneity, 2) Pressure-Temperature-time-Deformation modeling in order to constrain the depth and temporal evolution of heterogeneous flow, and 3) petrophysical analysis and synthetic seismic modeling in order to constrain the rheological evolution of the deep crust and illuminate how similar structures may be recognized and interpreted through seismic anisotropy methods. The ultimate goal is a model for the development of these structures in lower crust and for the evolution of their rheological and seismic properties.